New York City College of Technology S-STEM Program

Information Science and Systems (33)

This program offers scholarships to 36 academically promising, financially disadvantaged students in the departments of Computing and Engineering Technology. The institution plays a major role nationally in the production of underrepresented minority graduates in science and engineering. The NSF scholars benefit from close association with faculty in their departments, counseling and mentoring targeted to their career interests, and tutoring by adjunct faculty through the College Learning Center. The financial assistance enables the college to graduate larger numbers of students, shortens the time it takes for students to obtain their degrees, and get placed in appropriate jobs in the workforce. The coordination among the Learning Center, departmental, and student support services creates a matrix of encouragement and support that contributes to the reduction of attrition.